Phase Transitions in Stochastic Fracture of Disordered Architected Materials

Additively manufactured lattice materials are increasingly enabling lightweight, multifunctional structures for aerospace, transportation, renewable energy, and biomedical applications. Their architected geometry provides exceptional opportunities for reducing weight while maintaining mechanical performance, making them attractive for aircraft structures, automotive components, wind turbine blades, and orthopedic implants. However, these materials remain highly sensitive to manufacturing imperfections and geometric variability, which often promote localized damage and catastrophic fracture, limiting their structural reliability in demanding service environments. Recent discoveries suggest that disorder need not be detrimental: when introduced in a controlled manner, engineered randomness can fundamentally alter damage evolution by promoting distributed failure that delays crack localization and enhances structural resilience. This research seeks to establish a new scientific foundation for exploiting disorder as a design parameter in architected materials. By uncovering the fundamental mechanics governing the transition from distributed damage to localized fracture, the project aims to develop predictive principles for designing lattice materials that combine lightweight efficiency with exceptional damage tolerance and reliability. The resulting knowledge will advance fundamental understanding in solid mechanics, statistical physics, and architected materials while supporting the development of next-generation structural systems for aerospace, energy, transportation, and biomedical applications. Potential broader impacts include more reliable lightweight infrastructure, improved energy efficiency through weight reduction, enhanced resilience of critical engineering systems, strengthened advanced manufacturing capabilities, and interdisciplinary educational opportunities spanning mechanics, materials science, additive manufacturing, and data-driven engineering.

The project will establish a multiscale theoretical and experimental framework to investigate the damage-to-fracture transition in disordered additively manufactured lattice materials. The central hypothesis is that this transition constitutes a nonequilibrium phase transition governed by the interplay among lattice topology, geometric disorder, and structural instability, and that these mechanisms can be systematically controlled to optimize structural resilience. To test this hypothesis, the research will integrate theoretical modeling, large-scale statistical simulations, high-throughput experimentation, and data-driven analysis. A mean-field thermodynamic framework will first be developed to characterize the phase diagram governing transitions between distributed damage and localized fracture across varying lattice architectures and disorder intensities. Monte Carlo simulations incorporating stochastic fracture and elastic instability will then quantify how microscale fluctuations evolve into macroscopic crack localization. A provisionally patented high-throughput mechanical testing platform will experimentally validate these predictions by rapidly generating statistically significant datasets from additively manufactured lattice specimens with prescribed disorder. Statistical analyses of precursor burst behavior and damage evolution will further establish predictive indicators of imminent catastrophic failure. Together, these complementary approaches will establish a mechanistic process-structure-property framework linking engineered disorder to structural performance and reliability. The outcomes are expected to provide predictive design principles for architected materials that intentionally exploit controlled randomness to achieve unprecedented combinations of lightweight efficiency, strength, damage tolerance, and structural reliability across a broad range of engineering applications.